CISE Research Instrumentation: Adaptive Computing Cluster

EIA-9985986
Ronald R. Sass
Clemson University

CISE Research Instrumentation: Adaptive Computing Cluster

The Department of Electrical and Computer Engineering at Clemson University will purchase a cluster of workstations with reconfigurable computing to support research in cluster computing, reconfigurable computing, bioinformatics, and robotics, science and engineering. The equipment will be used for several research projects including in particular "Adaptive Computing Cluster", Fast Sequence Searching on an Adaptable Computing Cluster', "Reconfigurable Hardware Support for a Parallel File System, and "Performance Validation of Nonlinear Controllers for Magnetic Bearings via Dynamic Simulation'. Each of these projects require the unique combination of configurable hardware and cluster computing resources requested to obtain experimental results. The use of the equipment will be restricted to use by the faculty and students involved in these projects.